Presidential Young Investigator Award: Electro-Optic Materials and Device Study

Researchers are interested in high speed electro-optics because beyond the electronic technology is the optical technology. Efforts include growth of quaternary compound semiconductors by organo-metallic chemical vapor deposition, picosecond infrared spectroscopy, and integrated optical devices. The goal is to make current devices work better and to invent as well as to characterize new devices. The following projects have been identified: measurement of fluctuations of new injection lasers, simulation of the performance of future high speed optical communications systems, development of a picosecond dye laser system working in the same wavelength range as optical communications systems, demonstration of ultra high speed modulators and time-division demultiplexers, development of computer-aided design tools for optical circuitry, and study on the long-term stability of the LiNbO;i3 devices. With progress in all the above-mentioned projects, electro-optics can be brought to higher sophistication.